Illinois Number Theory Fest

This conference, held at the University of Illinois at Urbana-Champaign, will bring together distinguished experts to report on recent advances in classical analytic number theory, combinatorial number theory, computational number theory, and Diophantine analysis.
All of these areas of number theory are very active with a number of spectacular recent breakthroughs.

Between 125 and 150 participants are expected, with approximately 25 invited plenary 40 minute talks and many 20 minute contributed talks. Invited speakers include both well-established senior researchers and rising young stars.
Most of our overall budget is intended to support students, postdocs and young faculty who do not have their own support, including women and under-represented minorities.